Curing Reaction-Processing-Structure Relationships of Thermosetting Polyester Resins

This research deals with the curing reaction-processing-structure relationship of thermosetting unsaturated polyester resin and its composites. The project will develop mathematical models for simulating such processing operations as pultrusion and compression molding.